Engineering Research Equipment: Parallel Workstations

9727783 Belytschko The equipment grant enables the researchers at Northwestern University to use much larger three-dimensional models than possible so far, fundamentally changing the qualitative nature of problems solved, and leading to new breakthroughs. The new equipment also allows to further exploit parallelization tools in areas includingmeshless methods, multiple scale methods for complex structures and manufacturing processes, enhanced tribological performance, mechanics of geomaterials, fracture and fatigue and phase tranformations. ***